VPW: Role of Transposon Movement in Meiotic Nondisjunction

Although failures of meiosis are common, leading to a high rate of spontaneous miscarriage in humans, little is known about the causes of meiotic nondisjunction. The goal of the project is to pool the resources of two laboratories, one working on retroposons and other working on meiosis, to study the role of transposable elements in causing meiotic errors. Although some previous studies suggest that transposon movement may be the cause of spontaneous nondisjunction in meiotic chromosome segregation, this will be the first test of the hypothesis. This project will induce a high rate of transposon movement and then assess the effect on meiotic chromosome segregation, using both genetics and cytology. Interactive activities include teaching undergraduates in both a large and a smaller advanced class. The interactive activities are designed to advertise the ability of women to excel in academic research.